Space Weather: Infrared Diagnostic Development

Abstract: ATM 00-77624

Proposal Title: Infrared Diagnostic Development

Principal Investigator: Matthew Penn, California State University, Northridge

The investigators will determine variations in magnetic structure with height above the visible surface of the Sun. The main effort is to use the San Fernando Observatory Vacuum Telescope (SFOVT) to make a variety of observations of the photosphere and chromosphere at infrared wavelengths. Observations at infrared wavelengths of spectral lines formed at different altitudes will allow the investigators to make Zeeman magnetic field measurements. The investigators will perform a fractal analysis of the spatial structure of the magnetic field, and study the vertical extent of magnetic structures observed at low altitudes, the so-called moss. With high time resolution they will follow dynamic changes in magnetic fields prior to filament eruptions, and low-level outflows observed in coronal holes, possibly implying a low altitude source for solar wind. The proposed research will initiate a new direction for the SFOVT, utilizing a recently acquired, high performance infrared camera.